Undergraduate Education in High Performance Computing

This project expands the undergraduate computer systems curriculum through an introduction to high-performance computing. Until now, the computing facilities could not support such courses. Funds are being used to acquire the necessary hardware and software to teach two new courses, one on parallel processing and one on experimental computer science. The first course is based on a novel approach that emphasizes parallel languages as a bridge between parallel architectures and parallel algorithms. The second course is quite likely an absolute first. Organized exclusively around experiments, it teaches students how to evaluate high-performance technology. Together, and in the context offered by the rest of the undergraduate curriculum, these courses can strengthen students' ability to deal with cutting-edge technology. By dissemination through the World Wide Web, this project can support the development of similar courses in other universities.